Research Experiences for Undergraduates in Chemistry at the University of Alabama

Tuscaloosa Dr. Lowell Kispert and other members of the Chemistry Department at the University of Alabama at Tuscaloosa are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, thirteen undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry, with one student specializing in ethical issues. In addition to individualized research projects and seminars in chemistry, the program features an ethics component in which participants develop a teaching module with ethical issues that would be pertinent to students in chemistry. Participants are recruited primarily from small colleges located east of the Mississippi River including predominantly minority institutions.